CAREER: Interplay Between Multiphase Flow Dynamics and Mineral Dissolution in Subsurface Environments

Understanding how water and other fluids move through and interact with rocks is essential for managing groundwater, energy, and mineral resources. This project will undertake laboratory observations to improve understanding of rock structure, flow properties, and mineral reactions. The project will train students in cutting-edge methods and create an interactive virtual fieldwork experience for geoscience education.

This project will investigate pore-scale processes to improve the predictive capabilities of multiphase reactive transport models. The research will combine advanced flow experiments with high-resolution X-ray imaging to capture 3D changes in pore structure, fluid distribution, and mineral surfaces during dissolution. The resulting datasets will support the development of new mathematical equations for large-scale simulations, advancing modeling capabilities across geosciences and engineering fields.